The Nonlinear Response of Dynamic Systems to Multifrequency Excitations

This study deals with the nonlinear response of dynamic systems to mulifrequency excitations. The study focuses on resonance conditons which may produce large and possible damaging motions. Techniques are also developed for both passive and acitve control to reduce the large amplitude responses.